Vertebrate Renal Anion Transport

Physiological demands imposed by the environment are, of course,
fundamentally different for marine fish and birds. The cellular and
molecular processes that control inorganic phosphate and sulfate, however,
appear similar, though they may be used differently. It is by comparing
and contrasting these systems that we gain insight into the general
principles of ion regulation. The long-term goals of this project are to
better understand the comparative physiology of the mechanisms and
regulation of renal transport of inorganic phosphate and sulfate. These
anions can alter calcium balance, acid-base balance, urinary buffer
capacity, extracellular matrix of bone and cartilage, etc., and their
levels are tightly controlled in all vertebrates. Dietary in-take,
intestinal absorption and renal excretion are the sole determinants, aside
from growth, of body phosphate and sulfate balance. Excretion of these
anions is a result of renal filtration, reabsorption and secretion. The
kidney is the most important site of regulation of excretion of these
anions in the body. We here propose likely mecha-nisms regulating
phosphate and sulfate transport in members of two verte-brate classes
(winter flounder and chicken). Methods are used which permit
characterization of anion transport at several levels of organization
(proximal tubule primary cultures, isolated proximal tubule brush-border
and basolateral membrane vesicles, and renal clearance). We also have a
reasonable understanding of the basic intracellular signaling systems that
activate and inactivate membrane mechanisms for reabsorption or secretion
of these anions in both species. Regulation of transport by proximal
tubule involves the interaction of several hormones, acid-base status, and
phosphate and sulfate availability. We will examine a variety of hormones
that may control kidney handling of phosphate. In addition, our recent
studies indicate an important role for carbonic anhydrase in renal sulfate
secretion by marine fishes. The enzyme's role probably stems from the
membrane anion exchangers responsible for sulfate secretion. Because this
transepithelial transport process is profoundly influenced by steroid
hormones in both flounder and chicken, we have here proposed to examine a
possible regulatory effect of steroids (including vitamin D3) on carbonic
anhydrase activity and renal sulfate transport in both fish and chicks.